Acquisition of a Graphite Furnace/Flame Atomic Absorption Spectrophotometer for a Paleoceanography Laboratory

9313979 Oppo This award will cover partial costs of purchasing an atomic absorption spectrophotometer (remaining costs to be provided by the institution). The instrument will be devoted to analyses of Cd in biogenic calcite, a technique which shows much promise for reconstructing former level of biologic production and carbon flux in the deep ocean. ***